International Postdoctoral Fellows: Time-scales and Analytical Units: Identifying Patterns of Variability and Change in the Late Pleistocene Archaeological Record

9321410 Hartzell This award is under the International Junior Investigator and Postdoctoral Fellows Program, which enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Leslie L. Hartzell to work with Prof. Jim Allen, Drs. Richard Cosgrove and Nicola Stern at La Trobe University in Bundoora, Australia. This research will examine the long-term record of Pleistocene Human foraging patterns through the chronostratigraphic analyses of archaeofaunal remains excavated from three Pleistocene cave sites in southwest Tasmania, occupied ca. 30,000-14,000 years ago. Data on non cultural and cultural site formation processes affecting each cave, its geochronologies and patterns of association between the faunal remains and other categories of archaeological data will be used to investigate the structure and time resolution of these assemblages. Sites will be compared at similar temporal scales on the basis of the analyses of their site formation processes, radiocarbon chronologies and faunal assemblages. This research has particular consequences for discussions of Australian archaeology where the rapidly expanding Pleistocene record across the continent is forcing researchers to rethink views of the past as representing a continuity with the ethnographic present and to direct attention to the more difficult task of exploring spatio-temporal cultural variability within long-term archaeological records. Collaboration with preeminent Australian archaeologists exploring questions related to the construction of time scales and explanations of change in the Pleistocene/Holocene archaeological record will enhance the interpretive strategies presently being b rought to bear on the North American record. ***